Acquisition of a 400 MHz Nuclear Magnetic Resonance (NMR) Spectrometer

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Prairie View A&M University will acquire a 400 MHz nuclear magnetic resonance (NMR) Spectrometer. This equipment will enable researchers to carry out studies on a) the development of soluble polymer-support for synthesis of heterocycles; b) the development of second generation chiral catalysts for nitrone reactions; c) synthesis and development of novel free radical probes as tools for free radical biology; d) synthesis of antimalarial compounds isolated from Tecla trichocarpa; e) metalocarborane complexes; f) synthesis of bio-glass for bone repair; g) anticoagulant and fibrinolytic properties of polysaccharides; and h) intermediates of fungal metabolism and assay of metabolites in fermentation.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry.